Workshop on Coral-Based Climate Reconstruction

A three-day workshop will be held on the subject of coral-based climate reconstruction. Participants are to include scientists engaged in paleoclimate studies using corals as well as specialists from related disciplines. The purpose of the workshop is: (1) to discuss and evaluate methods for chronology development, paleoclimate time series, (2) to disseminate information about the use and fidelity of new and existing paleoclimate tracers in corals, (3) to explore ways in which coral-based paleoclimatology would benefit from methodologies and expertise developed in related fields, (4) to develop strategies for coordinated studies, and (5) to initiate discussion on development of a regional or global "scleroclimatic" database.